Studies in Commutative Algebra and Algebraic Geometry

Several central open questions concerning tight closure in positive
characteristic, such as whether tight closure commutes with
localization, and whether the tight closure of an ideal of a domain
coincides, in good cases, with the contracted expansion of the ideal
from the absolute integral closure of the domain are proposed for study.
Another main thrust is to explore several notions of closure
in rings that do not contain a field, such as finitely generated algebras
over the integers, with the hope of extending tight closure theory to such
rings, thereby solving many open questions. A new approach to the
problem of proving existence of big Cohen-Macaulay modules in
mixed characteristic will be pursued, as well as several lines of
research aimed at solving the long standing and important question
of whether regular rings are direct summands of their module-finite
extensions.

Commutative rings are abstract systems in which one can perform
addition, subtraction and multiplication. The integers and
real or complex numbers are examples, but there are vastly
different sorts of rings as well, including finite rings. One
can introduce variable elements into any ring, forming a larger
ring. Ring theory can be used to study the behavior of large systems
of equations in many variables. There are methods of transition
from the study of equations with real or complex coefficients to the
study of related systems with coefficients in a finite ring. These
methods produce qualtitative information about the solutions of
the original systems of equations: sometimes one can determine whether
there exist solutions and, if so, what the dimension of the solution
space is. Most of the problems in the proposal can be viewed as
problems about solving equations. The projects in the proposal
will provide fundamental information about the nature of the
solutions for many sorts of systems of equations.